The Structure of Hadrons with Electromagnetic Probes

Particles that experience the strong nuclear force constitute nearly
all the mass of of matter on earth and play decisive roles in the
composition of the universe. Thus, understanding their structure is of
great scientific interest. Such particles are called hadrons. There are
two major classifications of hadrons, baryons, such as protons and
neutrons, which are made primarily of three quarks, and mesons, which
are made primarily of quark-antiquark pairs.

The RPI group specializes in the study of the very small substructure
of hadrons, and discovering unusual, or exotic, hadrons which cannot be
described in terms of the usual 3-quark, or quark-antiquark contents.
Recently, the RPI group has played major roles in the discovery of
several states having unusual, or exotic, structure. These include
exotic baryons that may be five-quark states, and exotic mesons,
possibly having a quark and an anti-quark plus a gluon, or mesons made
of only gluons. These discoveries may indicate that many new particles
have not yet been observed.

During the next grant period photon and electron beams at the Thomas
Jefferson National Accelerator Facility and at the Cornell Electron
Storage Ring will be used to probe the structure of hadrons, and to
search for new exotic particles. The structure of these particles,
among others, will be studied in order to achieve a better
understanding of the strong nuclear force.

--